Conference: Participation Support for the First Inter- national Meeting for Wave Propagation in Random Media (Scintillation) to be held in Seattle, WA, on 8/3-7/92.

This grant provides support for travel and participation costs of approximately ten invited speakers from the former Soviet countries to attend the First International Meeting for Wave Propagation in Random Media (Scintillation), at the University of Washington, Seattle, WA, August 3-7, 1992. The Scintillation meeting will bring together the optical, radio, and acoustical communities to exchange ideas and foster communication. Only problems of wave propagation in continuum random media involving scintillation will be addressed. Some of the relevant topics, of importance to engineering, atmospheric sciences and observational astronomy, include: statistical description of scintillation; measurements of turbulence spectra; remote sensing; image and focal plane statistics; pulse propagation in random media; adaptive optics; and speckle interferometry. This meeting is the first to bring together the diverse international groups working in the area. Many prominent scientists from the former Soviet countries have contributed to founding the field, and, in fact, over one-third of the meeting abstracts are from these countries.